Industry Internship: Industry Internships in Manufacturing Management

The objective of this industry internship is to establish faculty-student-industry partnership teams to address specific industry problems. Projects will be carried out in collaboration with Dana Corporation in Fort Wayne, Indiana and General Mills in Toledo, Ohio. The project at Dana consists of a competitive cost analysis of current manufacturing operations. The project at General Mills will utilize statistical process control techniques to analyze quality management practices. Both projects involve extensive student interaction consistent with the guidelines of the internship initiative.